Mathematical Sciences: Connections Between Logic, Universal Algebra, and the Algebraic Theory of Data Types

8805870 Pigozzi The systematic investigation of the connection between quasi- equational and propositional logic has recently begun. The investigator will continue his work in this area. In particular he intends to extend the theory of commutators in universal algebra to relatively congruence-modular quasivarieties and filter-modular deductive systems. He also proposes to investigate possible applications to the algebraic theory of data types and to the connection between equational and Horn logic programming.